Development and Application of Subgrid Upscaling

The investigator considers a physical system representing a porous
medium, such as a groundwater aquifer or a petroleum reservoir. The
movement of, e.g., a contaminant or oil over several kilometers is
strongly influenced by the properties of the intervening rock. What
appears to us to be bulk fluid flow is actually a complex process of
fluid flowing through high and low permeability regions. To simulate
the flow, one generally uses a coarse computational grid. In subgrid
upscaling, one incorporates fine-scale processes within the coarse
grid cells through a local and easily computed subgrid technique. The
projects objective is to obtain provably improved accuracy and
computational efficiency. Moreover, since this technique provides a
good and easily computed approximation to the fine-scale movement of
the fluids, the technique will be adapted so that the full fine-scale
problem itself can be solved in significantly less time.
One post-doc, two graduate students, and one undergraduate student
will be involved in the research, and educated in the
interdisciplinary environment. The work will be disseminated at
interdisciplinary meetings and in the mathematics, groundwater, and
reservoir simulation literature to maximize its impact.

The contamination of groundwater is one of the most serious
environmental problems facing the nation. Improvements to the
predictive capabilities of groundwater simulations in heterogeneous
formations would have a wide-ranging impact. The engineering of
petroleum and natural gas production uses heavily subsurface
simulation technologies as well. The subgrid upscaling method has
shown great promise, and this proposal will further its development
while promoting important educational and societal objectives.